Determinants of Membrane Protein Topology and Structure

This project is an investigation of the factors that influence the insertion of membrane proteins into membranes. Three areas of interest are being pursued. First, the alkaline phosphatase (AP) fusion technique is being applied to determine the topology of the E. coli MalG protein. The topology of a membrane protein is a description specifying which parts are on which side of the membrane and which parts lie within the membrane. The AP protein fusion method for studying topology is based of the inactivity of cytoplasmically localized AP. Since AP behaves as if it were part of the membrane protein in fusions, its activity indicates which side of the membrane it is on. Second, a further analysis of cytoplasmic localization signals in the E. coli integral membrane protein, MalF, is being carried out. Third a preliminary study designed to determine whether or not there is a cellular machinery that inserts membrane proteins into membranes and determines their orientation will be initiated.